CAREER: Modeling Acetyl-CoA Synthase - Novel Bioinorganic Chemistry at a Dinuclear Site

This CAREER award by the Inorganic, Bioinorganic, and Organometallic Chemistry program supports work by Professor Eric Hegg at the University of Utah to model the active site of acetyl-CoA synthase. This unusual enzyme allows certain organisms to use carbon dioxide as their sole carbon source. Model complexes will be prepared that will lead to a better understanding of the active site and the reaction mechanism of acetyl-CoA synthase. Ultimately this work will provide important information concerning acetyl-CoA biosynthesis and enzymatic C1/C2 chemistry.

Integrated within this research is an educational component designed to improve undergraduate biochemistry courses. A major thrust of this plan is to develop and utilize computer-based laboratory modules that will allow students to apply the concepts learned in class, demonstrate real-world applications of the information covered in the course, and expose them to the many new technologies required in modern biochemical research.